Geometry and Topology of Knots and Manifolds

DMS-0204386
Daniel Ruberman, Jerome Levine, and Kiyoshi Igusa

The topology group at Brandeis University proposes research on knot
theory and 3-manifolds, gauge-theory and 4-manifolds, and on higher
Reidemeister torsion of families of manifolds. Jerome Levine plans
to continue his study of finite type invariants of 3-manifolds. In
particular, he plans to investigate a graphical interpretation of a
new surgery-theoretic theory proposed in a recent paper. He also will
investigate various questions concerning boundary link invariants
such as the signature-type invariant and the relationship between the
Farber invariant and non-commutative Reidemeister torsion. Daniel
Ruberman's research uses gauge theory to investigate the geometry and
topology of 4-dimensional manifolds. He will extend his program of
using Seiberg-Witten theory and Yang-Mills theory to explore families
of diffeomorphisms of 4-manifolds and positive scalar curvature
metrics on a 4-manifold. Further work explores whether finiteness
theorems of Riemannian geometry hold in dimension 4. Seiberg-Witten
and Donaldson theory will also be used to investigate a simple but
important class of non-simply-connected 4-manifolds. Kiyoshi Igusa's
work extends his study of higher Franz-Reidemeister torsion to the
complex case and to various new spaces of graphs. He will use this
to interpret the Miller-Morita-Mumford classes in terms of the higher
Franz-Reidemeister (FR) torsion.

Our research encompasses a number of themes in geometry and topology.
One of these is the interplay between topology and algebra, and
another is the interplay between topology and theoretical physics.
To study spaces or other topological objects such as knots, we encode
some aspects of the space into familiar algebraic objects such as
matrices or polynomials. Some of the algebra used to study
3-dimensional objects is connected with ideas developed by physicists
to understand quantum field theory, especially the Feynmann integral.
Investigating this interplay contributes to our understanding of the
3-dimensional world in which we live. Part of our work is concerned
with the evolution of spaces--the study of the way in which they
change as some parameter is varied. Some of the research in this
direction develops algebraic tools which apply in the case when there
are many independent parameters. Another component studies the
evolution of 4-dimensional spaces and geometries, using techniques
arising in gauge theory, a fundamental geometrical tool in
theoretical physics.